Engineering Research Equipment: Environmental Engineering: Biocontaminant Indoor Air Quality Test Stand

9411572 Davis This is an award to assist in the purchase of equipment for conduct of research the objectives of which are to study the behavior of aerosols in indoor air. The equipment is planned for use in optimizing design of filters for removing air pollutants, formulating a filtration model for prediction of filter efficiency, identification of conditions for minimizing the production of bioaerosols and validation of the signature lipid biomarker method of bioaerosol air sampling. A result of this award is expected to provide the investigators with a biocontaminant indoor air quality laboratory that can be used in conducting research as noted above. In addition, the investigators plan on conducting research on indoor air quality in residential and commercial buildings and in facilities used for transportation of people. The proposal leading to this award was submitted in response to NSF 93-155, Research Equipment Grant Program. ***